SBIR Phase I: A Universal Flight Management Unit for Unmanned Aircraft Systems

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project is to enable safe and reliable autonomous unmanned flight operations. Unmanned aircraft systems (UAS) are used in a growing number of applications requiring increased vehicle autonomy, such as indoor operations, civilian infrastructure inspection, precision agriculture and aquaculture, remote sensing, wildlife tracking and conservation, and package/medicine delivery. As the diversity and number of applications of autonomous UAS keep growing, platform-independent solutions to onboard autonomy become increasingly important. Potential market segments for the proposed technology are focused on the most challenging use cases such as last-mile delivery, urban infrastructure inspection, and passenger air vehicles (air ambulance, air taxi, air shuttle). Therefore, technological advances in platform-independent onboard autonomy, particularly for small unmanned aircraft systems (sUAS), can have a large positive societal impact by enabling safety and reliability of UAS.

This Small Business Innovation Research (SBIR) Phase I project investigates a universal flight management unit (FMU) for nonlinearly stable and robust autonomy of UAS, in a platform-independent manner. At present, there is a dearth of nonlinearly stable and robust flight stacks that are platform/model-independent and real-time implementable on existing hardware, particularly for sUAS. Two critical challenges to be overcome for reliable platform-independent autonomy of UAS are: (A) dynamic stability in the presence of constraints on onboard processors, sensors and actuators; and (B) robustness to dynamic external uncertainties (e.g., wind, weather) and internal causes (e.g., changing payloads, onboard faults). The scientific objectives of this Phase 1 research are: (1) onboard trajectory planning, control and navigation for autonomous operations of UAS to provide dynamic stability and robustness to disturbances and sensor noise; (2) embedded software-hardware integration of guidance, navigation and control algorithms with commercially available hardware to build a FMU for onboard autonomy; and (3) experimental verification and validation of this FMU on different quadrotor unmanned aerial vehicle platforms, including a flying-wing platform. The underlying framework behind this platform-independent FMU will be nonlinearly stable and robust model-free control and estimation techniques that ensure safe and reliable autonomous operations.